Acquisition of a Confocal Microscope to Enhance Undergraduate Reseach and Training

A grant has been awarded to Randolph-Macon College under the direction of Dr. David Coppola to acquire a confocal microscope to enhance faculty and undergraduate research and training. The investigators will use the confocal instrument to obtain enhanced images of cells and their internal structures in a variety of projects. Research includes characterization of cell structure of receptors in the nervous system, development of leukemia in fruit flies, bacteria that live inside marine organisms called bryozoans, and characterization of proteins in mammalian sperm. Undergraduate students will take an active role in research at this primary teaching institution.